PostDoctoral Research Fellowship

This award is made as part of the FY 2023 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Tara Abrishami is “Graph decompositions in structural graph theory” The host institution for the fellowship is the University of Hamburg and the sponsoring scientist is Reinhard Diestel